Compaction of Igneous Cumulates

9417144 Boudreau This research involves a study of compaction in igneous cumulates utilizing a quantitative approach. the proposed study would include development of numerical models of compaction that can be used to determine the importance of several parameters including: variation in cumulate density with height, the rate of heat loss and generation within the cumulus pile, and the rate of accumulation of crystals. The theoretical model will aid in understanding correlations between lamination, bulk major and trace element composition, mineral compositions, and the liquid-fluid compositions as indicated by accessory phases. Initial models will be designed to be broadly applicable to all types of rocks formed by accumulation of crystals.